PYI: Coping with High Memory Latency in Scalable Multi- processors

As shared-memory multiprocessors are scaled to a large number of nodes, coping with the large latency for memory references becomes a major challenge. In general, there are two complementary approaches for managing latency: (i) methods that reduce latency for accesses, and (ii) mechanisms that help tolerate large latencies. While both approaches are important for general-purpose parallel architectures, it is preferable to first reduce the latency for accesses before trying to tolerate the latency. This is because techniques which depend on tolerating latency demand a much larger degree of parallelism in order to successfully overlap communication and computation. This project explores and evaluates novel techniques to deal with the latency problem. The research will be done in the context of DASH (Directory Architecture for Shared Memory), a scalable shared-memory multiprocessor currently being built at Stanford. The two major topics investigated are: (i) the use of weak memory consistency models to help reduce the latency for write operations, and (ii) the use of prefetching techniques to hide latency for both read and write operations.